Modest Supports for Sustaining Professional Development Outcomes over the Long-Term

The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools (RMTs). Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects. This study will investigate factors influencing the persistence of teacher change after professional development (PD) experiences, and will examine the extent to which modest supports for science teaching in grades K-5 sustain PD outcomes over the long term. Fifty K-12 teachers who completed one of four PD programs situated in small, rural school districts will be recruited for the study, and they will participate in summer refresher sessions for two days, cluster meetings at local schools twice during the academic year, and optional Webinar sessions two times per year. Electronic supports for participants will include a dedicated email address, a project Facebook page, a biweekly newsletter, and access to archived Webinars on a range of topics related to teaching elementary school science. Modest support for replacement of consumable supplies needed for hands-on classroom activities will also be provided. The project will examine the extent to which these modest supports individually and collectively foster the sustainability of PD outcomes in terms of the instructional time devoted to science, teacher self-efficacy in science, and teacher use of inquiry-based instructional strategies. The effects of contextual factors on sustainability of PD outcomes will also be examined.

This longitudinal study will seek answers to three research questions: 1) To what extent do modest supports foster the sustainability of professional development outcomes in: a) instructional time in science; b) teachers' self-efficacy in science; and c) teachers' use of inquiry-based instructional strategies? 2) Which supports are: a) the most critical for sustainability of outcomes; and b) the most cost-effective; and 3) What contextual factors support or impede the sustainability of professional development outcomes? The project will employ a mixed-methods research design to examine the effects of PD in science among elementary schoolteachers over a 10 to 12 year period that includes a 3-year PD program, a 4-6 year span after the initial PD program, and a 3-year intervention of modest supports. Quantitative and qualitative data will be collected from multiple sources, including: a general survey of participating teachers regarding their beliefs about science, their instructional practices, and their instructional time in science; a teacher self-efficacy measure; intervention feedback surveys; electronic data sources associated with Webinars; teacher interviews; school administrator interviews; and receipts for purchases of classroom supplies. Quantitative data from the teacher survey and self-efficacy measure will be analyzed using hierarchical modeling to examine growth rates after the original PD and the change in growth after the provision of modest supports. Data gathered from other sources will be tracked, coded, and analyzed for each teacher, and linked to the survey and self-efficacy data for analysis by individual teacher, by grade level, by school, by district, and by original PD experience. Together, these data will enable the project team to address the project's research questions, with particular emphasis on determining the extent to which teachers make use of the various supports offered, and identifying the most cost-effective and critical supports.